Jonathan Bird's Blue World Website Re-Design

The objective of this project is to develop resources for STEM learning by
redesigning and expanding the "Jonathan Bird's Blue World" website; adding
components to enable teachers and students to search episodes for specific
themes, locations, or scientific concepts; and enhancing the lesson plans to
explicitly match the content standards for teaching science.

One of the major objectives is to make the "Jonathan Bird's Blue World" web
site content more widely accessible as an open source via an internet
connection with a dynamic search capability. The project adds a significant
amount of educational material and uses ocean topics to illustrate nationally
accepted standards for science learning. It is applicable to both formal and
informal environments and contains a multi-faceted approach to achieve its
goal including the following objectives: (a) build a web site search
capability that includes National Science Educational Standards
(NSES) and Ocean Literacy Principles with a link to segments illustrating
specific NSES; (b) create webisodes that feature specific NSES and develop an
interactive map on the web site; (c) create a user survey tool and outreach for
these improvements.

By partnering with researchers and educators to incorporate nationally
accepted standards for science learning into the website redesign, the project
has a broad impact on professional development for teachers. It has the
potential to reach diverse audiences in schools, homes and afterschool
programs. "Jonathan Bird's Blue World" is designed to complement other
educational materials and provide a useful resource for teachers everywhere,
improving public scientific literacy in informal and formal settings.